Mathematical Sciences: Global Analysis on Manifolds

The principal investigator will continue his study of analytic torsion. This is a poorly understood topological invariant of manifolds that can be defined using purely analytic techniques, yet cannot be determined from local information. The main idea of the research will be to relate the analytic torsion to other geometric invariants of the manifold. This award will support research in the general area of differential geometry and global analysis. Differential geometry is the study of the relationship between the geometry of a space and analytic concepts defined on the space. Global analysis is the study of the overall geometric and topological properties of a space by piecing together local information. Applications of these areas of mathematics in other sciences include the structure of complicated molecules, liquid-gas boundaries, and the large scale structure of the universe.